Geosciences: Atmospheric Chemistry

9355039 Sinha This proposal requests support for 5 graduate research traineeships in atmospheric chemistry. The research and education program described involves the study of a variety of problems in stratospheric and tropospheric chemistry. In addition to graduate research, a complete graduate education curriculum in environmental science, with an emphasis on the atmosphere, is described. The five individual research programs described are involved in a variety of interdisciplinary and collaborative work. Interactions between these groups foster and excellent environment for learning all aspects of atmospheric chemistry. The collective group meetings and course offerings provide a sound foundation for the proposed training program. Problem solving is emphasized in the educational process. ***